Mathematical Sciences: 1995 Annual Spring Topology/Southeast Dynamical Systems Conference

9420077 Bellamy A joint conference on topology and dynamical systems will be held at the University of Delaware, Newark, Delaware, from March 30 to April 2, 1995. This is one of a series of annual conferences dating back to 1967 (for the topology part), and well over 200 mathematicians are expected to attend. Over the years this conference has managed to maintain its traditional identity and at the same time to expand its breadth. In particular, dynamical systems was integrated into the conference in 1987 and has since become one of the central topics, with those aspects of the subject that have strong links to the more traditional areas of the conference having been emphasized. There will be seven major one-hour addresses and twenty-one invited half-hour talks. There will be three additional concurrent sessions of aproximately twenty-eight fifteen-minute contributed talks, and students will be encouraged to participate. Major addresses will be given by Hames A. Yorke (U Maryland), John W. Milnor (SUNY at Stony Brook), James T. Rogers (Tulane U), Mary Ellen Rudin (U Wisconsin), John H. Hubbard (Cornell U), Mladen Bestvina (U of Utah), and Ruth M. Charney (Ohio State U). ***